Long-Term Effectiveness of the Calculus Workshop Model

Institutional and national studies have reported a diminishing proportion of underrepresented minority college students entering and completing technical mathematics-based degree programs during the past two decades. Research by Uri Treisman has shown that an interactive workshop model based on academic excellence rather than remediation greatly enhances the success for many of these students in first- year calculus. The present study examines the paths of workshop students throughout the course of their academic program, and the effect that the workshop experience may have had. This effect is measured in two complementary ways. First, by the short term and longitudinal institutional data on the academic success of these students within their technical major, and second, by the impact that the workshop experience had on the student's academic career as defined and interpreted by the individual student. Primary data will be collected at the California Polytechnic State University at Pomona. Results will be considered within the context of comparative workshop data from other institutions nationally, including the City University of New York and the University of Illinois. Conclusions and recommendations will be discussed as they relate to current and future interactive mathematics programs.